RUI: Magnetism and Phase Transitions of Mixed Magnetic Insulating Systems

They will examine magnetic behavior and phase transitions in a variety of mixed and dilute magnets with short-range exchange interactions. Effects of competing spin anisotropies and/or competing exchange interactions are of particular interest, especially their influence on the structure of T-composition magnetic phase diagrams. New systems exhibiting tetracritical or other multicritical points should emerge, some with qualitatively new features. New examples of the insulating spin glass will be examined, including cases of model classes not yet realized experimentally. The nonlinear susceptibility will be studied, in order to further their understanding of spin glass universality classes; time-dependent effects will also be examined. Work is also proposed on certain Fe(III) bisdithiocarbamate and bisdiselenocarbamate compounds. Interest centers on characterizing the magnetic ordering in these unusual pentacoordinate systems, determining zero-field splitting parameters and exchange interactions, and discovering new examples of XY or Ising systems. Methodology will consist primarily of variable temperature, variable field magnetization and susceptibility measurements on both single crystal and polycrystalline samples. This work will have a major impact on the departmental research environment, especially in opportunities afforded undergraduates for research during the academic year and during summers. Such experiences will be valuable preparation for later scientific work.